Professionals as a Resource for Instructors of Science and Mathematics (PRISM)

ASM International and the ASM Foundation for Education and Research have requested support for a three-year project to assist 20 local chapters of the ASM International in forming long-term partnerships with their local schools and/or school districts. They propose using a "process model" which is based on the experience of a pilot project involving a group of seven (7) chapters in forming such relationships. That model is described in terms of three key elements and will entail the conduct of a series of workshops, offered to a progressively smaller number of invitees who have successfully negotiated the prior element, designed to shepherd at least 20 local chapters through the final stages in the establishment of durable partnerships. Foundation support is approximately 10% of the total project cost which includes not only that of the immediate partnership but also that anticipated as a commitment by the local chapters of scientist time and materials.